"Ninth International Conference on Laser Spectroscopy; Bretton Woods, New Hampshire; June 18-23, 1989 (Physics)"

It is proposed to hold the Ninth International Conference on Laser Spectroscopy in Bretton Woods, New Hampshire June 18.23, 1989. Subjects will include fundamental phenomena in atomic and molecular physics, new techniques in laser spectroscopy, new laser sources, applications in chemical and molecular dynamics, photobiology and photomedicine, ultrafast spectroscopy, and future directions of laser spectroscopy.